SBIR Phase II: A Resilient and Underactuated Robotic Hand Capable of Both Power and Precision Grasping

This Small Business Innovation Research Phase II project proposes a robotic hand based on a novel
torque-switching mechanism and patented miniature motor controllers. The mechanism actively channels
motor torque along different transmission paths and enables dependant and independent (time-discreet)
control of both finger joints in a robotic hand to perform both power and pinch grasps. There is a growing
need in industry for adaptable and flexible manufacturing capabilities in a dynamic environment. Industry
generally uses single-axis grippers and end-effectors that are modified to pick up specific items in a
highly-controlled environment. This requires exchanging multiple customized and expensive grippers via
tool-changers. This project’s goal is to produce a paradigm shift in the materials-handling industry by
introducing a highly flexible, affordable, and lightweight robotic gripper that can grasp and manipulate
objects of varying size, shape, and stiffness. The Phase-II project objectives are to design and develop a
prototype 3-fingered gripper using a novel torque-switching mechanism, optimized motors, multiple
feedback sensors, and miniature control electronics, and to test and evaluate the prototype gripper in an
industrial setting. This program will result in a compact, lightweight, and affordable robotic hand capable
of grasping and manipulating a large range of objects.

The broader impact/commercial potential of this project addresses the shortcomings of gripper devices
available today which discourage the use of robotic systems, thereby undermining manufacturing
productivity. The proposed solution improves manufacturing competitiveness by enabling easier adoption
of robotic work cells in conventional markets such as light manufacturing and emerging markets such as
the food and beverage industry. The societal impact will be felt in the field of education where robotics is
recognized as a strategic motivator for children and young adults to enter into technical fields. Most
robots are too large and dangerous to bring into a classroom. The proposed robotic hand will be very
portable, safe, and exciting for both educators and students. A significant increase in gripper dexterity will make it an even more attractive motivator in the classroom and other secondary educational programs and
workshops. A potential secondary application for this innovation is a more dexterous and lightweight
hand prosthesis which could have a major societal impact. Finally, the ability to transmit torque through
different paths in a miniature package and allow control of different functions with a single small actuator
enables lightweight yet versatile machines and could have impacts beyond the field of robotics.